Mathematical Sciences: Second North American Meeting of New Researchers' in Statistics and Probability

9504227 Pal ABSTRACT The Second North American New Researchers' Meeting, organized by and for new researchers, is the only conference that addresses the interests and concerns of recent Ph.D. recipients in Probability and Statistics in the United States, Canada, and Mexico. Because many new researchers are isolated from the statistical community, with little or no contact with junior and senior colleagues in their field, this meeting provides a unique opportunity for new researchers to exchange ideas and initiate contact with one another. We hope that this conference will assist in the professional development of new researchers, by helping them become full participants in the statistical profession, and by providing an opportunity for them to act as peer mentors for each other as they begin their scientific careers. The ultimate effect of this process is a strengthening of the research base of the statistical community in North America. All those attending the conference are expected to actively participate by presenting their current research---either in a talk or displayed in a poster. There will be no parallel sessions. The program also includes several talks by senior statisticians and probabilists actively involved in the most up-to-date areas of research. These people will be invited to share their research ideas and enthusiasm for research, and to provide tactical suggestions on how to build a thriving research program and succeed in the academic world and larger statistical community.